RUI: Chromosome Localization and Molecular Characterization of DNA Repair Genes in Xiphophrus Fishes

An organism's DNA is constantly subject to damage from various agents in the environment (such as chemicals and ultraviolet radiation) as well as from derivatives of oxygen generated during its cells' own respiration. All species of organisms, from the most primitive to the most complex, synthesize a number of different enzymes whose function is to repair different types of DNA damage. This is a proposal to investigate the organization of the genes encoding DNA repair enzymes in a group of interrelated species of fishes. This work should shed light on how these functions evolved among the vertebrates, a topic about which we know little. The evolutionary knowledge thus gained could help to elucidate some of the complex and only partially understood relationships among different DNA repair functions in mammals, including humans.